University-Industry-Government Relations Conference, Rio De Janeiro, Brazil, April 26-29, 2000

This grant will provide partial support for travel of US researchers to the third international university-industry-government relations conference. The conference allows researchers on this topic to report results and develop collaborations for future research on the relations among social, economic, and scientific development. The first conference was held in Amsterdam in January 1996; the second, in New York in January 1998. The grant will also help to develop a website for post-conference access and interaction, and lead to publication of special journal issues and a book.